Experiments on Convection and Dense Plume Dynamics on a Sloping Bottom

0080069/Smethie

This project consists of a study of the way in which dense water is
formed on a shelf and then descends to depth when the shelf-water is
subject to a negative surface buoyancy flux. The intent is to model
dense water formation on continental shelves with the Weddell Sea quoted
as the main motivation. The approach is to perform laboratory
experiments in a rotating tank with a simplified shelf-slope geometry.
The experiments are distinguished from earlier experiments by the use of
a distributed surface buoyancy flux, by a novel approach to trying to
quantify the viscous flow draining fluid from the down-slope gravity
currents, and by the inclusion of canyons and ridges on the slope
topography.